Research Experiences for Undergraduates in Environmental Science and Engineering

This REU site is in Environmental Science and Engineering at Florida International University. The objective is to stimulate and promote interest, curiosity, creative and critical thinking of undergraduate students in environmental science and engineering during their early years in the undergraduate program. This work involves students in a comprehensive research program relative to movement and dispersion of oil spills and treatment of contaminated media to minimize potential damage to the environment.